Regulation of GSK 3B in Xenopus

Glycogen synthase kinase 3 beta (GSK3b) is an intracellular serine
threonine kinase found at the heart of a number of important signaling
pathways. These include embryonic pattern formation, tumor suppression and
regulation of neurofibrillary tangles in Alzheimer's disease. A dramatic
example of GSK3 function is in axis formation in the frog Xenopus. Expression
of molecules that act via GSK3b, such as Wnt proteins, or of mutant forms of
GSK3b itself, result in formation of complete ectopic dorsal axes. This
suggests that reduction in GSK3b activity is sufficient to cause "dorsalness".
Preliminary studies indicate that endogenous GSK3b is less abundant on the
dorsal side of the embryo than on the ventral side. This contrasts with the
effects of ectopic Wnt expression in which specific activity of GSK3b is
reduced but abundance is not. This proposal aims to analyze GSK3b regulation
in Xenopus, comparing endogenous mechanisms with classical Wnt regulation, to
better understand the modes of regulation of this important protein.

Endogenous dorsal depletion of GSK3b ccan only be by reduction of
synthesis or stability or by translocation of protein away from the dorsal
side. The recently demonstrated role for a GSK3-binding protein suggests a
post-translational mechanism. Therefore, differential stability will be tested
by measuring the half-life of epitope-tagged GSK3b in dorsal versus ventral
lysates. Translocation of pre-existing GSK3b protein will be monitored by
visualizing localization or dispersion of exogenous, tagged GSK3b versus
control proteins.

Sites on the GSK3b protein required for endogenous and Wnt-dependent
regulation are unknown. They will be mapped, exploiting the advantages of the
Xenopus system for this purpose. Dorsal-specific and Wnt-dependent protein
modifications will be coarsely mapped by mass spectrometry of tryptic
peptides. Fine mapping and functional correlation will be done by
site-directed mutagenesis and expression in vivo. Mutants will be made at
candidate modification sites and tested in vivo for specific activity with and
without expression of Wnts.

Preliminary biochemical studies reveal proteins associated with GSK3b in
vivo that do not correspond to known GSK3b-binding proteins. GSK3b-associated
proteins are clearly important and so to identify these novel proteins (and to
determine the association or absence of the known proteins in vivo), direct
biochemical analysis of proteins co-immunoprecipitated with GSK3b will be
carried out. Gel electrophoresis, Western blotting and microsequencing will be
used.